SGER: Design of Efficient Testing and Screening in Molecular Biology

Intellectual Merit

The proposed work will focus on the following research tasks: (i)
development of near-optimal designs for DNA library screening based on new construc-
tions; (ii) application of the newly developed constructions to find gene efficiently and to
improve contig sequencing; and (iii) extension of these newly developed constructions to
complex models for eukaryotic DNA transcription and RNA translation.
Successful completion of these research tasks will result in efficient and robust pooling
designs to achieve efficient gene identification. This will enable new research directions
in several fields of biology and medicine.

Broad Impact

The multi-level educational component of this project will focus on
increasing computer science students' participation in bioinformatics. The PI will ag-
gressively seek to recruit and involve talented graduate students in this research project,
with a special focus on members of underrepresented communities. The educational and
research experience students will gain from the involvement in this project will help pre-
pare them for a successful career in academia and industry. The artifacts of this research
will benefit the broader bioinformatics and advanced theory research communities. Fur-
thermore, the developed techniques have potential applications in database management,
medicine, biochemical testing, and biological networks.